Stochastic Inverse Problems for Computational Imaging

Snyder The goals of this research are the development of: 1. improved image restoration algorithms for dealing with stochastic inverse problems; 2. methods for assessing the quality of the images which are produced; and 3. strategies for parallel implementation of the resulting algorithms. The primary focus is on quantum-limited data which arises in such diverse applications as imaging faint objects in outer space and imaging radioactivity concentrations within human tissue.